Finite Element Studies of the Nonlinear Behavior of Soft Hydrated Tissues

This research deals with two important problems in computational engineering; error estimation and adaptive grid control. In particular, the following areas will be considered: Evaluate alternate hybrid/mixed finite element formulations for the linear biphasic theory. Develop a two-dimensional triangular axisymmetric elements for the linear biphasic weighted residual/penalty finite element analysis and integrate this using the finite quadtree automatic mesh generator with remeshing capabilities. Develop adaptive analysis capability for two-dimensional problems based on initial error estimators and error indicators. Evaluate the solution algorithm for selected axisymmetric problems and perform error analysis for the linear biphasic theory. Develop a nonlinear biphasic analysis including strain dependent permeability for axisymmetric problems. The soft hydrated tissue is the biphasic medium where the algorithm will be tested. This type of modelling will allow researchers to investigate physiologically realistic loading and geometries in biomechanics of joints. One of the principal investigators has been collaborating with the Orthopedic Research Laboratory at Columbia University to delineate the lubrication mechanisms in synovial joints, this computational effort will complement very nicely the biomechanics research.